ITR: Communication in the Presence of Noise and Algorithms for Error-Correction

ITR: Communication in the presence of noise
and Algorithms for error-correction

PI: Madhu Sudan, MIT

The increased reliance of information technology in our
day-to-day life has resulted in an explosion in the amount
of data that is stored in digital media and transmitted over
the internet. Associated with the increased amount of storage are
increased expectations: Over communication channels, one hopes to
be able to transmit more information, faster; and on storage media
one hopes to store more information, cheaply and for longer periods
of time. However, all channels introduce noise
over time and corrupt the stored/transmitted information.
The task of coping with errors in the new information technology
era leads to new challenges and a resurgence of some of the
classical ones. This research project investigates foundational
questions and designs solutions for some of these challenges,
with special focus on the following directions:

A systematic study of ``list-decoding'' algorithms
as an approach to push the limits of error-correction.
A worst-case approach to information theory to capture
more general models of error.
A reexamination of classical models of communication from
a new (algorithmic/asymptotic) perspective.